Workshop on Constructive Methods in Cellular Automata Theory

9702556 Griffeath This award provides funds to partially support a workshop on cellular automata theory to be held at the Santa Fe Institute. The purpose of the workshop is to bring together researchers from different disciplines to help foster the development of rigorous results in cellular automata. The workshop will focus on three active areas of cellular automata research: shape and interface theory, constructive analysis of Conway's Life, and algorithmic complexity of elementary cellular automata.